Usability, Security, and Privacy of Information Systems: A Workshop

Proposal Number: 0841126
PI: Jon Eisenberg
Institution: National Academy of Sciences
Lead

Title: Usability, Security, and Privacy of Information Systems: A Workshop

The National Academy of Sciences will organize and hold a workshop to involve the community in topics of increasing priority to NSF/CISE: namely usability and privacy. Usability is concerned with providing tools to help users of all kinds (e.g., home users, enterprise administrators, network administrators, forensics analysts) manage the security and privacy of their systems. The privacy topic is very broad, as it deals with a range of challenges and issues, e.g., what is privacy, what mechanisms will help achieve it, how can privacy be measured, are their impossibility results relating to the attainment of privacy?